CAREER: Sediment Dynamics of a Microtidal Partially-Mixed Estuary

ABSTRACT:
This CAREER award provides funding to critically examine two classical paradigms in sediment dynamics of microtidal, partially-mixed estuaries. The first is that gravitational circulation is the dominant mechanism for landward transport of fine sediment. The second is that convergent transport of sediment within the water column is the immediate cause of the along-channel turbidity maximum. In the educational portion of this proposal, the PI requests funding to develop and implement faculty-supervised learning experiences for teams of graduate, undergraduate and high school students that integrate hands-on experiences into science instruction in ways consistent with national recommendations for science education reform.